EAGER: Community Building and Workflows for Data Sharing with Publicly Accessible and Consumable Metadata

In this exploratory activity, the Center for Open Science (COS) will create and pilot a result-reporting workflow for with Open Science Framework (OSF) study registration that includes reporting study outcomes, archiving study data and materials with permanent identifiers, and availability of metadata in a public API such as could be used by a federal agency for consumption (e.g., NSF Public Access Repository (PAR)).

The team will conduct community building around data sharing in the product development process and in the review and evolution of data sharing standards established with the Transparency and Openness Promotion (TOP) Guidelines and badges for acknowledging open practices. The project anticipates maximizing the discoverability of metadata of NSF-funded research, and increasing scientific rigor by helping link the products of research (data and software) to their associated publications through a user experience that supports transformative behavior change towards open-science aligned research.